Analysis on Complete Manifolds

Abstract

Award: DMS-9971418
Principal Investigator: Peter Li

In this project, the principal investigator proposes to study
various analytical aspects of a complete manifold in relation to
its geometrical structure. In particular, he proposes to
understand the space of polynomial growth harmonic functions on a
general class of manifolds that includes manifolds with
non-negative Ricci curvature and also minimal submanifolds of
Euclidean space which has Euclidean volume growth. He also
proposes to understand the structure of the image set of harmonic
maps and it implications to the underlining geometric,
topological, and complex structures. Finally, he proposes to
investigate the impact of the validity of a global mean value
inequality with sufficiently small mean value constant.

The study of geometric-analytical structure is a fundamental and
important part in the development of mathematics. It also has
direct implications to many branches of sciences and engineering,
such as, general relativity, robotics, material science, and
computer graphics.